STRATMAN: Adaptive Integrated Manufacturing Enterprises: Information Technology for the 21st Century

9215620 Hsu This project addresses vision effecting adaptiveness in integrated manufacturing enterprises for the next decade. This vision has been developed on the basis of the intensive research over the past nine years. The research will investigate new fundamental information technology to enable Adaptive Integrated Manufacturing Enterprises (AIME). It is focused on four major problems: (1) management of multiple systems that operate concurrently over a widely distributed network without a central controller, (2) achievement of open systems architecture that can accommodate legacy systems as well as add new systems, (3) implementation of object-oriented technology in production systems with the crucial ability of managing heterogeneous views and changes, and (4) inspection-linked enterprise information requirements-modeling and utilization to close up the feedback logic from production to design. The research will develop an AIME information architecture with attendant techniques, an extended object-oriented technology for an AIME software environment, and AIME information requirements modeling through in-process verification and inspection. A multidisciplinary research team of investigators will conduct the research.